Calcium Signalling in the Regulation of Flagellar Beating in Sperm

Calcium Signalling in the Regulation of Flagellar Beating in Sperm
In mammals, fertilization takes place deep within the female reproductive tract, in the
ampulla of the oviduct. When sperm are recovered from the ampulla and observed swimming
on microscope slides, they swim vigorously in circles. This swimming pattern is termed
hyperactivation. In the environment of the oviduct, hyperactivation is not so useless as it might
seem; in fact, it assists sperm in reaching the oocyte and in penetrating the cumulus matrix and
zona pellucida. Hyperactivation is switched on by an increase in Ca 2+ at the flagellar axoneme in
the core of the flagellum. The goal of this project is to determine how Ca 2+ reaches the axoneme
to switch on hyperactivation. Pharmacological agents that induce release of Ca 2+ from intracellular
stores (thapsigargin, thimerosal, and caffeine) were found to initiate hyperactivation in bull sperm.
There are two families of Ca 2+ stores in cells, the inositol 1,4,5-trisphosphate receptor stores (IP3 R)
and the ryanodine receptor stores (RyR). Antibodies against IP3 R revealed the presence of a store
in the flagellum. This store may be the redundant nuclear envelope (RNE), an organelle located at
the base of the flagellum. The RNE arises during spermiogenesis, when condensation of the
nucleus of the spermatid leaves behind excess nuclear envelope. Rather than being discarded, as
are all other superfluous cytoplasm and organelles, the RNE is retained and packaged neatly as a
scroll of membranes at the base of the flagellum. It is proposed that the RNE is retained to serve
as a Ca 2+ store. In addition to providing Ca 2+ to the base of the axoneme, the RNE could release
Ca 2+ to mitochondria to stimulate ATP production. The RNE is quite closely associated with
mitochondria at the base of the flagellum. These mitochondria are terminal members of the tightly-wrapped
helix of mitochondria that surrounds the axoneme in the flagellar midpiece. The helix
forms a barrier in the midpiece between the plasma membrane and axoneme; therefore, the
mitochondria are also in a position to regulate Ca 2+ in the axoneme.
Given this unique organization of RNE and mitochondria with respect to the axoneme, the
following 4 hypotheses were developed to test how these organelles play a role in initiating
hyperactivation. Bull sperm (Bos taurus) will be used to test the hypotheses.
Hypothesis 1: The intracellular store that provides Ca 2+ for hyperactivation is gated by both IP3
and ryanodine receptors. Our preliminary evidence implicates both types of receptors in releasing
Ca 2+ to initiate hyperactivation. Highly specific agonists of the receptors will be used to confirm
these findings. If the hypothesis is correct, it would mean that the amount of Ca 2+ released can
occur at two or three levels, depending upon which receptor is activated: IP3 R alone, RyR alone, or
the two in combination. Such a mechanism can control the intensity of hyperactivation, such as to
increase flagellar bending during penetration of the zona pellucida.
Hypothesis 2: The intracellular Ca 2+ store in the flagellum is the RNE. It is proposed that this
unique structure, which has been ignored in the past, is responsible for providing Ca 2+ for
hyperactivation. Localization of the IP3 R and/or RyR to the RNE should tell us whether this
hypothesis is correct.
Hypothesis 3: A Ca 2+ rise in mitochondria is involved in switching on hyperactivation. The
picture of Ca 2+ signalling that has been emerging for other cells is that mitochondria pick up Ca 2+
released from intracellular stores and respond by increasing ATP production. ATP levels are
doubled in hyperactivated guinea pig sperm. Therefore, experiments are proposed to test whether
release of Ca 2+ from intracellular stores results in increased levels of Ca 2+ , NADH, and ATP in
flagellar mitochondria.
Hypothesis 4: Mitochondria regulate flagellar Ca 2+ and hyperactivation. The tight wrap of
mitochondria around the flagellar axoneme separates it from the plasma membrane; therefore,
mitochondria are in a position to affect Ca 2+ levels at the axoneme in the site where the flagellar
bend develops. Blockers of mitochondrial release of Ca 2+ will be applied to sperm before using
pharmacological initiators of hyperactivation to determine whether hyperactivation can be prevented.
The testing of these 4 hypotheses should provide a picture of how Ca 2+ turns on this
movement pattern that is essential to fertilization.